Immersive Visualization at RIDGE 2000 Integrated Study Sites: Community Access and Construction of Virtual 3-D Models

The Visualization Center at Scripps Institute of Oceanography will be used as a visualization laboratory for the creation, collection and distribution of a library of visual objects which can be thought of as building blocks that will form the foundation for virtual 3-D models. These models will be archived and made available via a high-bandwidth, web-based ftp site, along with the required freeware.